Direct Methods for Composite Materials

Research will be conducted to provide reliable methods of analysis of composite materials containing either spherical or elongated spheroidal inhomogeneities at arbitrarily high volume fractions. A given ensemble of inhomogeneities will be analyzed directly. This will allow for an accurate prediction of the overall response of these materials, and also for an examination of how their properties depend upon the internal distribution of inhomogeneities and the local stress concentrations.